VARIATIONS: A Middle School Life Science Project

9350490 Moyer This proposal seeks funds to develop and produce a set of 12 instructional video-based units on key topic in the life science. The video units are to be produced by The Educational Film Center in association with the Montgomery County (MD) School System and are designed to enrich existing as well as newly developing life science curricula. The units will provide a bridge for teachers as they incorporate the new educational technology and modern cognitive theory in their science reform curricula. The final products will consist of 12 video units both produced in laser disc-software and video cassette-print formats and teacher support materials directed to middle school teachers. ***